Mathematical Sciences: Research in Commutative Algebra and Invariant Theory

This project is concerned with research in commutative algebra and invariant theory. The principal investigator intends to find the equations of nilpotent orbits for classical groups and examine Green's conjecture for general canonical curves. In the area of binary forms, he plans to apply his techniques to attack Dixmier's conjecture on systems of parameters for rings of invariants of binary forms. This project involves research on the interface of commutative algebra and algebraic geometry. Given a curve, a commutative algebra can be associated with it. Information derived from studying the commutative algebra supplies information about the curve. This is a rapidly developing area which impacts many areas of mathematics.